Postdoctoral Research Fellowship in Plant Biology

Calcium and proton uptake at the alkaline surfaces of characean algae will be investigated. Two competing models will be tested: the "electronic" model and the electroneutral one. Various methods will be used to distinguish between these models. Pericellular ion and electrical fluxes will be estimated from chemical and electrical gradients. The uptake and translocation of calcium and carbon will be measured using split chamber and radioisotope experiments. Cytochemical localization of calcium ATPase will be attempted. The molecular form of carbon transport toward the site of calcification will be investigated by examining the fractionation of stable isotopes of carbon and oxygen between precipitated calcium carbonate and solution. The study has implications with regard to bicarbonate utilization in aquatic systems, membrane electrophysiology, calcium transport through cells and across membranes, and the mechanisms of calcification in plants and animals. Because bicarbonate is concentrated by some algae and used as a carbon source for photosynthesis, this project also is likely to add to our understanding of this important life process.